U.S.-France Cooperative Research: Multi-Reference Self- Consistent Size Extensive Configuration Interaction

This three-year award for U.S.-France cooperative research in theoretical and computational chemistry involves the theoretical chemistry group of Ludwik Adamowicz at the University of Arizona and the research group of Jean-Pierre Malrieu at the Universite Paul Sabatier, in Toulouse, France. The award provides travel support to Dr. Adamowicz, a postdoctoral researcher and a graduate student. The objective of the research is to develop new, more accurate quantum-mechanical ab-initio methods for calculating electronic excited states of molecules and clusters by applying the French group's method of variational configuration interaction. The project takes advantage of the complementary expertise of the Arizona and Toulouse groups and will advance understanding of methods for calculating molecular systems.